Cyclopentadienophanes: precursors to columnar metallocenes

This research will focus on the synthesis and metal complexation of cyclopentadienyl anologs, e.g. 1,2,4-TECp (1,2,4-triethano bridged bis(cyclopentadienide)), ofcyclophanes. Transition metal complexation of the exo pi-faces of 1,2,4-TECp and analogous compounds will lead to dimeric, oligomeric and polymeric metallocene containing materials. These polymeric columnar metallocenes are electronically linked via powerful interannular through-space electronic interactions and are expected to show novel electron transfer properties. %%% With this award, the Synthetic Organic Program is supporting the research of Dr. Mark L. McLaughlin of the Department of Chemistry at Louisiana State University. Professor McLaughlin will focus his work on the synthesis of cyclopentadienophanes, compounds having two five-membered rings of carbon atoms containing two double bonds, with the two rings joined by three side-chains which hold the two rings rigidly near and parallel to one another. Above and below each ring sits a doughnut-shaped electron cloud, and a powerful interaction between the clouds of the two rings exists because of their close proximity. These compounds will bind to transition metals to form columnar structures, and the transition metal complexes are likely to exhibit facile electron transfer, and perhaps also interesting materials properties.